WSU/UI Young Scientists Program

Washington State University and the University of Idaho, seek to stimulate interest in science career among highly qualified 9th and 10th graders. In linkages between high school science teachers and university faculty located at several regional experiment station throughout the two states. A two-week on-campus summer workshop will feature four sessions (5 hours) in animal science, plant science, engineering and food science/nutrition during the first week. In the second week pairs of students will spend four days in an intensive mentoring relationship in a laboratory. Special sessions on career exploration, research methods and ethics in science will assure that students are sensitive to these issues. A follow-up activity of 6-8 months duration will involve students, their high school science teachers and university scientists in an independent project. The project will conclude with regional one day seminars involving 6-8 students, their teachers and mentor-scientist in a reporting and evaluation session.